Regional Workshop on Applied Computing '89 (WAC 89); March 30-31, 1989; Stillwater, Oklahoma

The project is to organize, plan and conduct a regional computing conference (WAC89) to take place in Stillwater, Oklahoma, in March 30-31, 1989. The objectives of the project are: 1. to provide an opportunity for personal contact of computing scientists and practitioners from academia and industry; 2. to provide a forum for the exchange of ideas; 3. to provide computer science graduate students with an opportunity to present results of their research; 4. to allow computer science students an opportunity to widen their horizons by meeting and listening to computer scientists other than their immediate teachers; 5. to publish papers presented at the workshop for dissemination in the form of a workshop proceedings.